CRI: Electronic Textiles for Wearable and Pervasive Computing

Abstract
Proposal: CNS 0454195
PI: Thomas L. Martin
Institution: Virginia Polytechnic Institute and State University (Virginia Tech)
Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Electronic Textiles for Wearable and Pervasive Computing

The PI at Virginia Polytechnic Institute and State University is a leader in emerging research in electronic textiles. At present, the PI's team is handweaving textiles with embedded wiring, sensors, actuators, and processing elements. The project will acquire a computer controlled, 60-inch industrial loom, a 15-needle embroidery machine, and a software controlled sewing machine that can handle novel fibers. These acquisitions will enable faster and more reliable production of experimental textiles; the equipment is similar to industrial equipment so the researchers will both gain experience with manufacturing needs and position their research for future impacts on practice. The research supported includes textiles for health monitoring, monitoring physical therapy, monitoring gait, and sound detection and localization.